Wind, Water and Waves: Interactive Science Education Designed for Middle School Girls

9552914 Sullivan With a discipline focus of physics and mathematics this Young Scholars project would enroll 30 middle school girls for each of two summers. Using Seattle University as a base, during the four week summer program, they will work with practicing scientists on a series of field, laboratory and computer simulation activities to understand wave behavior and scientific methodology. These activities will be complemented with field trips to industrial and environmental sites. During the following academic year they will work on a small group research projects. The fourth week of the summer is spent at Camp Hamilton in the Cascade Mountains where the young scholars will make environmental measurements on Lake Hannah and construct a model of the lake bottom from soundings they've taken.